Methodology for Developing a Practical Algebra Tutor

The goal of this research is to develop the methodology for using model-tracing tutors to deliver useable classroom instruction. The context of this effort will be to develop an Algebra I tutor that will be used in the Pittsburgh Public Schools. As the consequence of past NSF support we have developed a software system for building such tutors, had extensive experience with building tutors for algebra, and have an established research laboratory in the schools. This grant will explore how this can be used to deliver a Algebra I tutor that will be used in the schools. We will try to adapt the expert system development methodology for tutor development. Our experts will be a master teacher in the school system and the mathematics faculty in a local high school. We will work with them on codifying the curriculum (consistent with the standards of the NCTM) that they want to to teach and on making the classroom adjustments to profitably employ the tutor. This project will serve as a general test of our tutoring methodology and serve as a model for adapting it for other school systems and for other topics.